Postdoctoral Fellowship: MSPRF: Singularities in Positive Characteristic and Cartier Algebras

This award is made as part of the FY 2024 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Anna Brosowsky is “Singularities in Positive Characteristic and Cartier Algebras”. The host institution for the fellowship is the University of Nebraska-Lincoln and the sponsoring scientist is Jack Jeffries.